I/UCRC Planning Grant: Tree Genetics Research Multi-Institutional Center

This purpose of this award is to plan for the Hardwood Tree Improvement and Regeneration Center at Purdue University to become a part of a multi-university Industry/University Cooperative Research Center with the Tree Genetic Engineering Research Center at the Oregon State University. Under the planning grant, the members of both centers will be consulted both in writing and in person, about specific research projects. A joint planning workshop will be held at Purdue University to finalize the research projects and organization and management of the two multi-university Centers.